Attachment and Mastery Motivation in Hispanic Infants

This is a minority Research Inititation (MRI) planning grant proposal. The proposed research is psychological in nature. The influence by which the quality of infant attachment to mothers affects subsequent development, will be studied among low income hispanic families. Standard measurments will be administered to children at age 15 months and again at age 27 months to ascertain aspects of attachment to include the infant's security versus anxiety and displays of mastery. The planning grant funds will support activities of the investigator in the development of a competitive research proposal for submission to the MRI research initiation component. Funds will be used to secure release time, during which time the investigator plans to conduct a full literature survey, establish consultative and collaborative relationships, conduct a small pilot study and write a proposal.